RESEARCH INITIATION: Low Reynolds Number Mixed Convection in Vertical Ducts

This study focuses on a fundamental investigation in convective heat transfer. Specifically, the heat transfer in a vertical tube in the mixed convection regime will be analysed by experimental and theoretical means.